Three-Phase Cooling of High Flux Electronics

An exploratory study will be carried out to study the efficacy of a high velocity mixture of a volatile liquid and a non- condensable gas in cooling high flux electronics applications. Preliminary studies at Cray computer Corporation suggest that such a system could attain a 5- to 10-fold enhancement of volumetric heat removal rate. The task will include (1) construction of a high heat flux narrow channel to simulate high-density electronics packaging; (2) determination of heat transfer coefficients and pressure drops for a mixed flow of nitrogen and perfluorinated liquid (FC-72) through the channel; (3) development of a first order mathematical model suitable for extrapolating the experimental results to other configurations of interest.